U.S.-Mexico Cooperative Science: Quantum States of Shallow Impurities in Wide Band Gap Semiconductors

9415824 Haller This Americas Program award will support collaborative research between Dr. Eugene Haller, University of California, Berkeley, and Dr. Hugo Navarro-Contreras, Instituto de Investigaciones Cientificas en Comunicacion Optica, San Luis Potosi, Mexico, on the characterization and study of the quantum states of shallow impurities in wide bandgap semiconductors. Techniques to be used in this research are far-infrared and photothermal ionization spectroscopy. The aim is to gain as much understanding as possible of the impurities' quantum nature and to establish a possible association between impurity atoms and other defects in the materials to be studied. Wide-bandgap materials are potentially useful for demanding electronic applications and as visible optical emitters. At present, many research groups are focusing on the growth of wide-bandgap blue-emitting semiconductor materials that could be used to fabricate blue light-emitting diodes and semiconductor lasers. The application of these materials to light-emitting devices is hindered by several factors, among them, the difficulties encountered in growing high quality single crystalline epilayers. Recently, preparation of relatively good samples has been achieved, but very little is known about the spectroscopic properties of dopant impurities in these materials. The spectroscopic techniques to be used in the present study will provide new and highly relevant information concerning the nature of these impurities. ***